Current Data Assimilation into 2-D and 3-D Barotropic Ocean Tidal Models

9908091

Padman/Egbert

In this work, sub-surface current meter data will be assimilated into
two and three-dimensional numerical models of tidal flows in the
Weddell Sea. Inverse methods will be used to guide improvements of
parameterizations of the effects of diurnal vorticity waves and of
friction in the bottom boundary layer. Since the Weddell Sea is
close to the critical latitudes for the main semi-diurnal tide and
has weak stratification, the bottom boundary layer is thick and the
tidal flow is relatively barotropic, simplifying the modeling task
and allowing a better characterization of the flow by the current
meters.